The construction of mathematical meaning in bilingual conversation

The goal of the proposed Research Planning Grant is to structure a three-year program of research on mathematical conversations among bilingual students. During the proposed R.P.G. project the Principal Investigator would complete literature reviews, conduct a pilot classroom study, consult with researchers in relevant areas, develop an initial theoretical framework, and design the subsequent research project following the planning period the Principal; Investigator would submit a proposal to NSF for a three-year research project to investigate how middle-school Latino students construct mathematical meaning during bilingual (Spanish and English) conversations while using mathematical representations and concepts.